Austin Science and Math Consortium: A Private Sector School Partnership for Tomorrow's World

The Science Academy of Austin will conduct the project, "Austin Science and Math Consortium: A Private Sector School Partnership for Tomorrow's World" to begin restructuring the math and science curricula in grades K-12 and make them components in a district- wide integrated "thinking curriculum." The project will address uses of technology in education, environmental issues, and scientific and mathematical literacy. Sixty teachers will be trained each summer for four summers in the use of technology. Two summer institutes will be conducted in the BSCS elementary school curriculum, and teachers will participate in environmental summer programs. Linkages will be developed among teachers, students, university faculty, and public and private sector leaders. An additional 10 to 15 Science Academy students will be provided each year to conduct classes in elementary schools. Interdisciplinary Science Academy courses will be developed on Planet Earth an on physics and technology.